Correlated Electrons Gordon Conference: Participant Support; Plymouth, NH; June 25-30, 2000

This award provides partial support for a Gordon Conference on the subject of "Correlated
Electrons". The conference will be held in Plymouth, NH, June 25-30, 2000. The conference seeks to bring a wide variety of systems and intellectual issues into the mainstream of correlated electron physics and to introduce the techniques and concepts of the correlated electron field to a wider range of physicists. Support for the conference will enable the participation of under-funded junior researchers and members of historically under-represented groups.
This award provides partial support for a Gordon Conference on the subject of "Correlated Electrons". The conference will be held in Plymouth, NH, June 25-30, 2000. The correlated electron problem underlies several major problems in solid state physics, including high temperature superconductivity and the so-called quantum Hall effects. Support for the conference will enable the participation of under-funded junior researchers and members of historically under-represented groups.